Probing fundamental physics with ultracold systems

The present proposal continues previous work on three interconnected topics: ultracold
atom-atom collisions, ultracold atom-ion scattering, and modeling of ultracold samples
doped with charged particles. The first topic involves calculating the scattering
properties of chromium, including dipole-dipole interactions in the presence of a
magnetic field, within a multichannel treatment. Also, the PI will study the effect of
Feshbach resonances on ultracold mixtures, such as Li-H or Li-Na, and investigate
boson-boson and boson-fermion mixtures of complex atoms, such as Rb-Cr or Mn-Cr,
for which dipolar interactions will affect the behavior of the ultracold samples.
Calculations of the scattering properties of group II atoms, such as Sr will be performed.
Second, we will explore the impact of including hyperfine interactions in studies of
ultracold atom-ion scattering. This is relevant to nascent experimental efforts on
systems such as Na-Ca+, Rb-Be+, or Rb-Ca+. Finally, the PI plans to investigate the
behavior of ultracold samples doped with charged particles. In all problems the PI plans
to implement and test new numerical methods suitable for multichannel treatment in the
ultralow energy regime.
NATIONAL SCIENCE FOUNDATION
Diary Note
Proposal:0653449 PI Name:Cote, Robin
Printed from eJacket: 02/13/07 Page 1 of 1